Forearc Deformation in the Central Andes: The Northern Terminus of the Atacama Fault Zone

Allmendinger
0087431
The Atacama fault zone can be traced for nearly 1000 km in the
forearc of the Central Andes. The northern terminus of the fault zone
occurs just south of Iquique, Chile, in a series of complex blocks
bounded by strike-slip, thrust, and normal faults. Digital topography
produced from satellite radar imagery shows that this area is one of
the most tectonically active parts of the entire fault system. The
area overlies the general region where the Iquique ridge on the Nazca
plate is being subducted beneath South America, and correlates well
with a seismic gap in the Benioff zone that many seismologists
believe will be the site of the next major earthquake on this plate
boundary. We are dating these young faults using Ar/Ar and Uranium
series isotopic methods, and are also studying their kinematics using
measurements of slip directions on the well-exposed faults. These
field data are being combined and analyzed in a map view block
restoration program developed at the Universite de Rennes (France),
which will allow us to quantify the strain and rotation in the
region. Then, we can evaluate block rotation versus oroclinal bending
hypotheses spurred by paleomagnetic data, as well as investigate the
origin of proposed arc parallel compression. Finally, our fieldwork
and digital elevation model provides a well-documented "before"
picture to compare to the "after" picture to be obtained following
the next great earthquake along this plate boundary, site of the
largest earthquake on record. Thus, eventually we will be able to
document how the forearc of a major ocean continent convergence
system deforms during Benioff zone seismicity.